A Course in Computer Intensive Statistical Methods for Mathematical Sciences Students

The project is developing a course in computer intensive statistical methods, with accompanying laboratories in Mathematica. Computer intensive statistical methods have significantly changed the practice of statistics in recent years, and need to be introduced in the undergraduate curriculum to bring the mathematics curriculum more in line with the current practice of statistics. The goals of the project are to develop an upper level undergraduate statistics course (a) whose topics are of current interest in the statistical community and are accessible to undergraduates, (b) which is problem-centered and uses real data, and (c) which promotes realistic use of the computer in the determination of problem solutions. The target audience for these innovations is students majoring in the mathematical sciences. The project is producing a textbook, with accompanying laboratories. These laboratories are designed so that they may also be used as supplementary topics in other courses such as mathematical statistics. The laboratories are also being made available electronically. ??